String Phenomenology 2011: The Tenth Annual Meeting on String Phenomenology at the University of Wisconsin, Madison, August 22-26, 2011

This award provides partial support for the String Phenomenology 2011 conference to be held at the University of Wisconsin, Madison, WI, USA on August 22-26, 2011. The funds will be used to subsidize the costs for young researchers in the field and to mitigate the cost of conference planning and facilities. String Phenomenology 2011 is the tenth annual meeting of the highly successful String Phenomenology conference series, which was launched in 2002 at Oxford University. The String Phenomenology annual conferences have become the hallmark venue for the presentation and dissemination of research progress and results in the growing field of string phenomenology, which focuses on the fundamental question of how to connect observable particle physics and cosmology with the domain of fundamental theory. Young researchers are particularly encouraged to attend the conference to present their work and interact with established leaders in the field. In selecting the invited speakers and advertising the opportunity to present talks in the parallel sessions to the community, it is a high priority to recruit qualified women and underrepresented minorities. Topics covered include advances in string compactifications and the resulting effective theories, moduli stabilization and supersymmetry breaking, formal theory and mathematical techniques, string cosmology, and connections to present and forthcoming experimental results in particle physics and cosmology.

String phenomenology is a dynamic and ever-growing field that is of particular interest in this data-dominated era characterized by Large Hadron Collider at CERN and a wealth of cosmological data. The scientific program includes plenary talks by leading researchers in the field. The String Phenomenology conferences are diverse, international meetings that emphasize the connections between formal theory and observations, and as such have impact on the intellectual progress in both areas. The emphasis on including young researchers allows for a broad audience and promotes young researchers in the field. This conference series provides the only large-scale annual meetings dedicated to this subfield of theoretical high energy physics, and thus they are of great importance to the advancement of the field.The conference website will be developed and advertised to disseminate the material presented at the meeting, including all plenary talk slides.